Proposal for Joint US-Ireland Workshop on Nanotechnology

This proposal is to secure support for a first workshop between scientist and researchers
from the United States and Ireland in the area of nanotechnology. This symposium is to
be held in Belfast, Northern Ireland on Oct 23 and 24. It will help strengthen already
developing ties between researchers in the US and Ireland in nanotechnology, and will
also be of great significance in involving joint participation from both the Republic of
Ireland and Northern Ireland (the "Two Irelands"). The symposium will consist of: (i)
Overview presentations by participants from US and Ireland on topics that define the
current forefronts in four selected sub-fields of nanoscience and technology where there
is substantial activity in both the US and the Two Irelands (Spintronics and
Nanomagnetics; Computational Nanoscience; Self Assembly Mechanisms; and Nano-Bio
Interfaces); (ii) Poster sessions that highlight the work of leading younger scientists
from the US and a broad community of scientist from the Two Irelands. (iii) Significant
time set aside for informal technical discussion and relationship building. (iv) A
structured planning session, where plans for specific collaborations will be developed.
The major objective of the forum is to develop an agenda for possible future collaborative
research and educational exchange between the three nations in this field.